Integrated High Performance Liquid Chromatograph for Undergraduate Instruction

A computer-controlled, modern, high performance liquid chromatograph (HPLC) is providing the capability for students to study state-of-the- art methods for separation and analysis of complex liquid solutions. Computer control is being achieved by purchasing appropriate hardware and software in lieu of the dedicated terminal normally supplied with the chromatograph. With this modification, the new chromatograph is being integrated into the existing computer network at the university, which will vastly increase the effectiveness of the instrument. Data acquisition, processing and storage and instrument control is becoming more flexible, and interaction with other instruments on the network (e.g., visible/ultraviolet spectrometer and gas chromatograph) is becoming feasible. The modernization of the HPLC capability is necessary for the department to maintain adequate faciltities for the education of the small group of chemistry majors and the considerably larger group of health science majors. The instrument is being used throughout the chemistry curriculum as well as throughout the Natural Science Division for undergraduate student research. The grantee is matching the award from non-Federal sources.